Upgrade of NMR Instrumentation

ABSTRACT Proposal: CHE-9403748 PI: Myers, A. G. Institution: Cal Tech This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at California Institute of Technology acquire upgrades for existing 400 and 500 MHz NMR spectrometers which will be used in research investigations in the following areas of chemistry: (1) Synthetic, Structural and Mechanistic Studies in Organotransition Metal Chemistry; (2) Studies on the origin of the hyperthermostability of rubredoxin from Pyrococcus furiosus; (3) Specificity in Co- and Post-translational Modification Reactions; (4) Organometallic and Catalyst Synthesis; (5) Synthetic and Mechanistic Studies in Organic Chemistry; and (6) Sequence Specific Recognition and Cleavage of DNA. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.